Operation of the Nuclear Structure Laboratory (Physics)

This award will support a program of research in heavy ion nuclear physics at the Nuclear Structure Laboratory, State University of New York at Stony Brook, using a superconducting booster accelerator in conjunction with a model FN tandem accelerator. Together with the experimental equipment and measurement techniques developed by the Stony Brook group, this capability makes possible an unusually sophisticated and diverse range of experiments. Continued development of research equipment, including superconducting accelerator technology, will be carried out in parallel with the nuclear science program. Collective excitations of nuclei at high excitation energies, and giant resonances, in particular, will be studied with observation of the decay gamma radiation. These studies probe shape changes as a function of nuclear temperature. The properties of nuclei having very high angular momenta will be measured using an array of Compton suppressed, high resolution Ge detectors. This work probes changes in shape and microscopic nuclear structure as a function of angular momentum. Laser spectroscopy will be used to study nuclei far from stability. Laser spectroscopy provides information on nuclear sizes and shapes via hyperfine structure measurements. Anomalous enhancements in the cross section for subbarrier fusion of heavy nuclei will be studied through measurements using a new Bragg curve spectrometer. Measurements of particle-particle correlations will be made and analyzed to study nucleus-nucleus reaction dynamics. A special detector array has been assembled for this purpose. The research will be carried out by five faculty members, fifteen graduate students and five post-doctoral fellows.